Gradients and the Control of Pattern Formation

Recent experiments suggest that gradients of regulatory molecules are
important for establishing the body plans of multicellular animals.
However, little is known about the mechanisms whereby target genes respond
to changes in the concentration of regulatory molecules. This application
proposes to study these mechanisms in Drosophila, which is ideal for this
purpose because the early embryo is a syncytium of nuclei that do not
possess cytoplasmic membranes. This permits the study of transcription
mechanisms directly, without complications from cell-cell signaling
processes. The work will focus on four gap genes, hunchback, giant,
Kruppel, and knirps, whose overlapping protein gradients form an integrated
system that establishes striped patterns of gene expression in middle
regions of the embryo. This work is driven by the hypothesis that these
gradients establish positions of gene expression borders by acting as
concentration-dependent repressors. For each gradient, the borders of
several target genes are set at different positions with respect to the
source. This suggests that each target gene responds to a different
concentration threshold of repressive activity. To test this hypothesis,
previously characterized enhancers and the yeast FLP-FRT recombination
system will be used to ectopically express different levels of each gene
outside its normal domain. These experiments will test whether expression
of a given gap gene is sufficient for a particular response, and identify
potential new target responses. The misexpression system will also be used
to dissect regions of the gap proteins that are required for repression.
Initially, the focus will be on evolutionarily conserved domains that have
been previously implicated in repression. Together these experiments will
help clarify the genetic circuitry that controls the positioning and
spacing of gene expression boundaries in the early embryo, and provide
insights into general mechanisms that control how different target genes
respond to different combinations and concentrations of regulatory
proteins. They will also provide a firm foundation for studies designed to
unravel the mechanisms that change body plans during evolution.